NSF-DELOS Workshop on "Information Seeking, Searching, and Querying in Digital Libraries" in Switzerland

The proposal provides travel expenses for US researchers to
participate in a DELOS workshop on "Information Seeking, Searching,
and Querying in Digital Libraries" to be held in Zurich, Switzerland
December 11-12, 2000. DELOS is a major forum for and organizer of
digital libraries research and planning activities in Europe. It is
funded by the Information Societies Technologies (IST) 5th Framework
Programme of the European Commission.

The workshop continues the planning and research agenda put forward
by the multi-year NSF-EU working groups' process jointly sponsored by
CISE/IIS, SBE/INT and the European Union. In the groups' final
report "An International Research Agenda for Digital Libraries",
increased levels of collaboration and interaction was seen as
critical to building multi-lingual, multi-national digital libraries.